International Travel Funds for Foreign Participants to Attend the Summer, 1989 Gordon Research Conference on Chemical Oceanography in New Hampshire

For the last twenty years the Gordon Research Conference on Chemical Oceanography has provided a major forum for discussions, exchange of ideas and information. The central theme of the Gordon Conference to be held in August, 1989 is " Chemical Processes in the Ocean.Atmosphere.solid Earth System." As in previous years, one of the objectives for the 1989 conference is to include several foreign scientists in the exchange of information. Significant research in these areas has been accomplished by them. The grant will provide international travel funds for foreign scientists to participate in this Gordon Research Conference on Chemical Oceanography. Several benefits will be realized by the participation of these individuals. Most of the marine geochemical research topics to be discussed require a global perspective which would benefit from increased international exchange. The foreign scientists can bring new insights and perspectives to the U.S. participants at the Conference. Approximately 100 U.S. scientists will thus have an opportunity to establish personal communication with the foreign scientists. The foreign participants will acquire in.depth information about the U.S. research programs. It will benefit their work and may well lead to expanding future collaborative efforts.